Strong Shift Equivalence Theory

9971501
Wagoner
Shift dynamical systems and Markov chains are useful models for
phenomena in areas ranging from discrete time smooth dynamics, to
statistical mechanics, to information and coding theory. In practice,
there are generally many ways of describing or constructing shift
systems that have essentially the same dynamical behaviour. Even in
the one-dimensional case, effectively recognizing when two concrete
models are equivalent is a fundamental open problem. Another natural
and related problem is to study the different equivalencies or
symmetries between two systems. Symmetries of a given system are
often called reversible cellular automata. One approach to the
classification and symmetry group problems for one-dimensional shift
systems that has been fruitful involves strong shift equivalence
theory. In recent years, this has led to progress on the Shift
Equivalence Problem. This is a tantalizing question in symbolic
dynamics that can be posed in elementary terms using matrices and
graphs and that has been open since since 1974. It has led to a new
type of positive algebraic K-theory for ordered rings by way of the
usual row and column operations on matrices but with certain
inequalities imposed.
Strong shift equivalence theory is a combination of algebra and
topology that grew out of the dynamics of systems known as shift
systems and their symmetry groups. It turns out to have unexpected
and interesting connections with areas of mathematics outside
dynamics, such as algebraic K-theory, cyclic homology, and topological
quantum field theory. Wagoner will continue to explore these new
developments.
***